Purchase of Equipment for Integrated Research on Plant Responses to Environmental Stress

ABSTRACT This project seeks funds to purchase instrumentation that will be used to conduct research specifically in the area of "plant responses to environmental stress". The funds requested will not only provide our "plant stress" research program with modern instrumentation, but will also strengthen our capabilities for training graduate and undergraduate students in the most contemporary techniques in plant stress physiology. The focus of the research to be conducted within the scope of this proposal is somewhat broad in the sense that it will encompass several different research projects. However, all of the research projects that will be enhanced by this project fall into the general category of plant physiology and metabolism as a response to environmental stress. One of the projects that will use the requested instrumentation centers on the development of physiological selection criteria for breeding drought resistant genotypes of grain sorghum. This continuing international research program with Mexico which has received federal and state support, has developed into a fruitful collaboration which is now involving several researchers and students from both Miami University and the Autonomous University of Tamaulipas in northeastern Mexico. In a second research program that will use the requested instrumentation, we are studying the role of epidermal flavonoids as W-B response molecules and W-B protection mechanisms in plants. We have synthesized (only one of two labs in the world to do this), a specific inhibitor of plant phenolics that is capable of completely inhibiting the synthesis of flavonoids. This inhibitor has uniquely enabled us to test the hypothesis that epidermal flavonoids are important W-B screens in plants.